Biologically Inspired Intelligent Classifiers

This project will advance knowledge about design of intelligent agents. It has two objectives. The first objective is the development of mathematical insights and procedures for automating feature discovery and learning by evolution -- two biologically inspired forms of long-term learning -- in the construction of automatic pattern classifiers. The second objective is the incorporation of automated feature discovery and evolution in automatic analyzers of large-scale image data banks and time-varying visual signals. This project will work to achieve these objectives by building on the Principal Investigator's and his students' techniques of adaptive hyperplane placement, window training (an extended form of stochastic approximation), relaxed branch-and-bound search, and genetic feature selection. The project will implement and test the resulting mechanisms of long-term learning in three-stage neural classifiers of handwritten numerical characters, tree classifiers of medical images in a large data bank, and adaptive segmenter of moving objects in digitized video. This project will contribute to the technology of long term learning in intelligent machines and to multi-sensor robotic vision by automating the discovery of highly discriminating combinations of features from diverse sensors.